Mathematical Problems in General Relativity and Relativistic Hydrodynamics

Professor Christodoulou will study the global dynamics of a new model of gravitational collapse in order to model the hydrodynamics of supernovae. He will also study the global stability of rotating black holes to nonlinear gravitational perturbations. This will help to understand the final stages of coalescence of a black hole binary. Professor Christodoulou's efforts are unusual, and highly valued and important. They provide rigorous mathematical analysis to model problems which represent important aspects of gravitational theory.